XPS: CLCCA (XPS: DSD) Future Extreme Scale Frameworks using DSL and ERTS

This project will lay the foundations for solving large multi-scale multi-physics engineering problems using new computational frameworks on the next decade's exascale computers. These frameworks will anticipate trends in proposed future computer hardware by being adaptive, asynchronous, fault-tolerant, and energy-aware and will address the possible billion-way parallelism of exascale systems by both generating efficient specific code through a domain specific language (DSL) and by efficiently scheduling that code through an Exascale Run Time System, ERTS.

The project's prototype computational framework will use Directed Acyclic Graphs (DAGs) to generate code in the DSL that is specialized for multicore nodes and/or accelerators and it will also use DAGS at the runtime system level in the ERTS. At a nodal multicore or accelerator level the DSL will be a declarative, high-level, type-safe domain-specific language for multi-scale, multi-physics simulations that will improve productivity by automating the writing of optimized code that is executed by the ERTS. In order to ensure that these activities produce relevant solutions for important engineering applications with high impact such as, for example, the design of new batteries and fuel cells or clean coal boilers, the project will employ a multi-disciplinary approach that couples computer science advances to the solution of such meaningful engineering problems.